The Inverse Kinematics for Control of a New Class of Robots for Computer-Integrated Flexible Manufacturing

Current six degree of freedom robot systems can meet the requirement of accessing a broad range of locations and positions in a workspace, but they frequently have the disadvantage of doing this in a suboptimal way. In particular, actuator overspeeding effects are often encountered in an attempt to maintain a constant speed during a particular class of operations or maneuvers, i.e., arc welding. Failure to maintain constant speed can result in reduced performance, i.e., degraded weld quality. Professor Davidson has designed a class of seven degree of freedom robots which have the potential of avoiding the overspeeding singularities. This project exploits that class of robots and develops the design and synthesis of workcells which use such robots. Workcell is defined as a unit comprising a robot, one or more tools placed at some angle and position on the end effector link of the robot, and a fixture. The research is accomplished through five steps including (1) developing the equations for algebraic dimensional analysis of the manipulators, (2) exploring alternative formulations of the synthesis equations to expand the number of design variables, (3) determining the maximum number of precision locations used to approximate a task, (4) prescribing the manipulator workspace in terms of manipulator dimensions and excursion ranges at the joints, and (5) extracting additional design conditions to enable maximizing the volume of workspace for the class of robots considered in this study. The research's impact will be in the area of future industrial robot technology. Specifically, the results could reduce the engineering time required for manufacturing setup, provide for the development of computer automated procedures of design for the placement of tools and fixtures in workcells, and constitute an important step in the computer automated programming of a robot to accomplish a specific manufacturing task. *